Research Experiences for Undergraduates: Frontiers in Chemical Engineering Research 2000

A REU site for the Chemical Engineering Department of the University of Pittsburgh is planned with considerable interchange between participants, faculty and graduate students both on a formal and informal basis. To provide a driving force for continued contact between students and faculty each student will submit their work for oral presentation at the following spring chemical engineering regional student paper contest. The goal of this REU program is to provide information, education, enthusiasm and encouragement to a group of the next generation's leaders in science.